2012 Shipboard Scientific Support Equipment for R/V Atlantic Explorer

ABSTRACT

23 July 2012
Proposal Number: 1216789
Institution: Bermuda Institute of Ocean Sciences
PI: N. Bates
Co-PI: R. Harelstad

The proposal requests one Shipboard Scientific Support Equipment (SSSE) item for the R/V ATLANTIC EXPLORER operated by the Bermuda Institute of Ocean Sciences (BIOS); namely a new main aft deck crane. This award represents Year 1 of a multi-year project. This item will improve safety and greatly enhance the vessel’s science support capabilities.

Broader Impacts: The R/V ATLANTIC EXPLORER supports federally funded scientific research throughout the Atlantic basin to expand human knowledge of the ocean environment. The vessel also conducts the routine servicing of the Bermuda Atlantic Time-series Study (BATS) moorings. During operations, graduate and undergraduate students are routinely exposed to seagoing oceanography through real-time satellite connectivity from ship to shore, and open house events. The ATLANTIC EXPLORER is scheduled to complete 170 NSF sponsored days in 2012.